Minority Postdoctoral Research Fellowship

This applicant proposes to study the influence of a known somatic gene mutation on gonad development is the nematode C. elegans. Specifically, the work will focus on a molecular and genetic analysis of the gon-1 (gonad abnormality) gene, including better mapping of the gene and cloning it. Examination of the developmental processes requiring the gene product will be pursued as well. This work is planned to take place in the laboratory of Dr. Jonathan Hodgkin at the Laboratory of Molecular Biology, Medical Research Council, Cambridge, England.